Wyoming King Air as a National Facility

Direct observations of the atmosphere through immersion and remote sensing are necessary for advancements in the atmospheric sciences. Instrumented research aircraft have been invaluable in providing these observations over the last four decades. The need for such aircraft will be great over the next few years for research covering a broad range of research problems including atmospheric chemistry, mesoscale meteorology and cloud physics which have been identified as high priority research areas in the atmospheric sciences. This award will make available to the entire atmospheric sciences community the University of Wyoming King Air research aircraft. The Wyoming King Air will be treated as all other atmospheric sciences community facilities with allocation being made by a peer review process. The University of Wyoming personnel have much experience in airborne research and the King Air is a state.of.the.art research platform. This award also will help in maintaining an active program in airborne research at the University of Wyoming which over the last few years has produced many of the scientists in this area.